NSF Grant Program: Internet Access

5 From: "David A. Staudt" <dstaudt> at NOTE 8/3/94 5:26PM (955 bytes: 18 ln) To: gclavon at nsf15 Subject: Saint Martin's ------------------------------- Message Contents ------------------------------- ---------------------- Original Header Lines (From NOTE) ----------------------- X-Sender: [email] Mime-Version: 1.0 Content-Type: text/plain; charset="us-ascii" ------------------------------- Message Contents ------------------------------- ABSTRACT "NSF Grant Program: Internet Access" Saint Martin's College PI: Thomas Morrin NCR-9417262 This project connects Saint Martin's College to the Internet over a 56 kbps line. Faculty and students at the school benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.